National Civil Engineering Research Needs Forum, to be held January 28-30, 1991, Washington, D.C.

The objective of the proposal is to identify, assess and prioritize the national research needs for the civil engineering profession. The conference will be structured and managed to go beyond the development of a long list of research ideas. The emphasis will be to select high priority problems, and to develop a prospectus for problem solution to each of them. The Forum will be attended by consultants, developers, suppliers, builders/constructors, specialty contractors, associations, researchers academics, and government agencies.